Support of The Interface Of Three Areas OF Biomedical Science With The Mathematical Sciences

Weidman
0109132
There are tremendous opportunities to increase our
understanding of biological and biomedical research challenges
through mathematical and statistical methods. But it is not easy
for researchers to collaborate on these topics because of a
historical gulf that separates the disciplines. In order to
overcome that gulf, the Board on Mathematical Sciences of the
National Research Council, in collaboration with the NRC's Board
on Life Sciences, holds a workshop, involving some 70 people
across the disciplines, to (1) stimulate some new collaborations
and insights on the spot and (2) provide an introduction for
mathematical scientists (disseminated via print and the Internet)
of some mathematical research directions that contribute to
important ongoing research in the biological and biomedical
sciences.
At the workshop, leading researchers in dynamical modeling
of cellular functions, in modeling of disease states, and in
neuroscience describe some of the major research challenges in
their fields. They do not limit themselves to "mathematical"
challenges; workshop discussions are focused on identifying the
mathematical and statistical research that should be undertaken
in order to advance the biological and biomedical research
agendas. By involving a broad range of mathematical scientists,
the workshop brings a number of different perspectives and ideas
to bear on the open questions raised by the presentations. The
aim is to stimulate a wide-ranging discussion and distill out the
best ideas. The workshop's summary will be widely disseminated
in order to give many more mathematical scientists the basic
understanding needed to become engaged in biological and
biomedical research.